Mathematical Sciences: Reciprocity for Fredholm Operators

Operator theory is a central discipline in Modern Analysis. Its origins lie in the study of mathematical physics and partial differential equations in the early twentieth century. At that time, it was seen that numerous physical problems in the theory of equilibria, vibration, quantum theory, etc. could be studied productively via the integral equations that model the phenomena. Thus, from the fertile minds of Hilbert, von Neumann, and other giants the subject of operator theory has grown to a central position in such investigations, and in core mathematics as well. At the heart of this methodology is the deep investigation of the spectrum of an operator. For self-adjoint or normal operators, this theory is now a standard technique throughout analysis, and the spectral theorem provides the necessary building blocks for all such operators. The current frontier, therefore, is the study of the structure of non-normal operators, as for example in the Fredholm theory. At this frontier, Professor Carey and his collaborator, Professor Pincus, are world leaders with established reputations for deep, conceptually innovative, fundamental, interdisciplinary work. Their theory of the principal function, defined on the spectrum of certain operators, is a broad extension of the ordinary index. This new research collaboration has established connections between the principal function and the distribution of zeroes of functions associated with ergodic flows, the structure of subnormal operators and the theory of closed currents in the study of function algebras. This work is particularly fertile as it directly combines operator theoretic ideas with other branches of mathematics, notably commutative ring theory and algebraic geometry. Currently, applications to the theory of commuting Toeplitz operators and linear and nonlinear partial differential operators are envisaged, among other technical applications in operator theory.